Presidential Young Investigators Award

This PYI award will be used to pursue studies in the area of contact mechanics of tribological systems. Finite element analysis and computer simulation will be combined with fundamental fracture mechanics and applied to tribological problems in metal cutting and tool wear and friction and wear of ceramics.